PRIMES Experience: Broadening Math Research and Enrichment Options for High School Students

This award partially supports the activities of PRIMES (Program for Research in Mathematics, Engineering and Science), including three annual PRIMES conferences in 2022-2024. Established at MIT in 2010, PRIMES offers talented high school students from across the U.S. an opportunity to work on year-long research projects under the guidance of academic mentors. Groups of students also participate in reading programs, online research forums, and a residential summer math camp. The program supports graduate students and undergraduates serving as mentors and helps diversify the mathematical community by providing additional opportunities for members of underrepresented groups.

Potential topics for student research projects include atomic monoids, positive semirings, Benson's conjectures in modular representation theory, Lie theory in the Verlinde tensor category, representations of Cherednik algebras in characteristic p, and classical information theory. More details and information about the program may be found on the program website:
https://math.mit.edu/research/highschool/primes.